Travel to Attend: International Conference on Acid Precipitation: Water Quality Control and Human Health; Uppsala, Sweden; August 13 - 16, 1985

Support is provided for a participant to attend the International Conference on Acid Precipitation: Water Quality Control and Human Health, to be held in Uppsala, Sweden, August 13-16, 1985.